ROW: Numerical Modelling of Crystallization in Magma Chambers

Crystallization can occur at the boundaries of magma chambers or within the body of the magma. These processes can lead to convection in the liquid and differentiation in liquid and solid phases. The basic physical mechanisms for crystallization at a side boundary have been demonstrated with laboratory experiemnts. It is proposed 1) to model a binary system crystallizing from a side boundary and 2) to model crystallization within the magma. The combination will aid in our understanding of magmatic and volcanic processes.